Efficient Triangulations, Decision Problems & Algorithms

The principal thrust of this research project is further development of
efficient triangulations and their applications to the study and
understanding of 3-manifolds. 0- and 1-efficient triangulations have lead
to a number of new methods and results on triangulations of 3-manifolds,
decision problems, algorithms, computational complexity, Heegaard
splittings, and Dehn fillings. We propose to develop further our
understanding of 0- and 1-efficient triangulations and to form a notion of
g-efficient triangulations (g > 1). Our goals are to make an explicit
connection between efficient triangulations and geometric structures on
3-manifolds, to use efficient triangulations for a better understanding of
Heegaard splittings of 3-manifolds, and to use our methods that reduce a
given triangulation to an efficient triangulation to achieve a
simplification to the solution of the Homeomorphism Problem for
3-manifolds (Classification of 3-manifolds). In particular, we propose
new algorithms for deciding if a 3-manifold is a Haken manifold, for the
JSJ decomposition of a 3-manifold and for the recognition of Haken
manifolds.

Three-dimensional manifolds are mathematical objects which are locally
modeled on familiar three-dimensional space. The major problem in the
study of three-manifolds is their classification, which is to make a
complete list of all three-manifolds without duplications. The study and
understanding of three-manifolds toward such a classification is the main
objective of this project. In particular, we know that three-manifolds can
be considered as a union of building blocks fitting together in a very
organized way. For example, tetrahedra may be used as the building blocks;
in this case, the collection of tetrahedra and the information about how
they fit together is called a triangulation of the three-manifold. All
three-manifolds can be triangulated. Thus one of the major strategies
toward solving the classification problem is to find methods to recognize
a particular three-manifold, having been given the three-manifold in one
of its many possible triangulations. Applications of topology of
three-manifolds range from questions of protein knotting and unknotting in
DNA to the issue of the shape of space (the universe). In particular, the
latter may very well come to an issue of recognizing the three-manifold
that is our universe. Thus the classification and understanding of
three-manifolds has far reaching applications and implications.